Atmospheric Responses to North Pacific Sea Surface Temperture Anomalies During Winter and Summer

Abstract ATM-9506368 Ting, Mingfang University of Illinois Title: Atmospheric Responses to North Pacific Sea Surface Temperature Anomalies During Winter and Summer This proposal outlines a comprehensive research and teaching plan which will enhance the PI's early development of her academic career at the University of Illinois. The "career" research involves the study of the dynamical effect of the North Pacific sea surface temperature (SST) anomalies on the extratropical atmosphere during both winter and summer seasons. The atmospheric responses to persistent midlatitude SST anomalies has been controversial in the past. The difficulties stem partly from the fact that the natural variability of the midlatitude atmosphere is very large, thus there is a small signal to noise ratio. This problem is also clouded by the fact that general circulation model (GCM) experiments with fixed extratropical SST anomalies do not always produce a consistent response. This project will concentrate on the North Pacific SST anomalies and their possible impact on the Pacific and North American climate. One novel aspect of the research is that it will make use of a series of modeling tools, including a linear steady state model, a dry GCM and a full GCM. The PI will also, for the first time, look int the effect the North Pacific SST anomalies for the summer season. The results of this research are expected to improve the seasonal forecasting for the Pacific and North American region. In particular, the results from the summer season will help the long range prediction of the mid-west drought and flood potentials. The education plan consists of innovative undergraduate teaching and developing a graduate course that is currently not available in the PI's department. One novel aspect in the undergraduate teaching plan will be to introduce students from various disciplines to the current weather information through the computer network at the University of Illinois and to help students interpret the data. The main objective of the new graduate course is to introduce the graduate students to the most up-to date research topics in an area that is rapidly evolving, namely the coupled ocean-atmosphere processes. The topics include the coupled air-sea interaction in the tropical Pacific, i.e, the El Nino/Southern Oscillation phenomenon, the air-sea coupling in the midlatitude, and the air-sea coupling for the tropical 30-60 day oscillations.